MFAI: Statistical Foundations of Large Language Models

This project develops statistical foundations for making large language models more reliable, transparent, and accountable. Large language models are increasingly used to support writing, education, scientific discovery, software development, business decisions, and public communication, but their outputs can be difficult to trust. They may sound confident when they are wrong, reflect hidden biases in the data or training process, or produce text whose origin is hard to verify. These limitations create risks for science, education, economic activity, public information, and national security. The project addresses these challenges by developing principled methods that help users know when an artificial intelligence system is uncertain, reduce systematic biases in model behavior, and identify machine-generated content. The research is expected to advance scientific understanding of modern artificial intelligence while producing tools for practical systems. The project also supports education and workforce development through new course materials, open software, reproducible evaluation resources, and research training for students and early-career researchers.

The research team will develop model-agnostic statistical methods for trustworthy language technologies, with a focus on large language models and diffusion-based language models. The research has three integrated goals. First, it will develop uncertainty quantification methods with finite-sample coverage guarantees, including approaches based on paraphrase consistency, conformal prediction for language-model judges, and uncertainty-aware decoding for diffusion-based language models. Second, it will develop distribution-aware alignment methods that go beyond standard reinforcement learning based on human feedback by reducing bias, improving calibration, preserving coverage over valid responses, and accounting for heterogeneous preferences across subpopulations. Third, it will develop statistically principled watermarking methods based on pivotal tests, with detectors designed to remain effective under common edits such as paraphrasing, truncation, and reformatting, and with extensions to non-sequential generation in diffusion-based language models. The project will combine theoretical analysis, scalable algorithms, and empirical validation on relevant datasets. Expected contributions include new statistical guarantees, practical optimization objectives, robust detection procedures, open-source software, benchmarks, and evaluation protocols for more trustworthy generative artificial intelligence.